CAREER: On the Geometry of Kahler-Einstein Manifolds

Proposal DMS-0347033

Title: CAREER-On the geometry of Kaehler-Einstein manifolds

P.I.: Zhiqin Lu (University of California, Irvine)

ABSTRACT

The proposer will study the Szego kernel of certain unit
circle bundle. The study of this is closely related to the
stability of manifold. It is now believed that the
stability of manifold is the key concept in solving the
Kaehler-Einstein equation on Fano manifolds. The other
problem the proposer will work on concerns the geometry of
Calabi-Yau moduli. In particular, the BCOV torsion on the
Calabi-Yau moduli may play a key role in verifying some
predictions in Mirror Symmetry. The proposer will
participate in various programs in education as well as
various activities to improve the efficiency of education.

The proposer is working on some key problems in geometry
which are not only important to mathematics, but also
important to other sciences like physics. For example,
general relativity is the the geometric theory of gravity.
One of the application of the proposer's work is related to
the number of "allowable" Universes. The proposer's work may
lead to the proof of the fact that the number of the
Universes is finite. On the other hand, The proposer will
participate the integrated research and education activities
that will promote the education level of the nation.